BAC: Neural Strategies in Eye Movement Control

9511655 Semmlow In terms of speed and accuracy, the systems in the brain that control eye movements (the oculomotor control systems) produce the highest motor performance that humans can accomplish. The controllers for these movements have two great challenges: 1) the need for a quick response despite delays while the brain processes the necessary information and 2) the need to attain accurate positioning despite errors in the neural and muscular apparatus. These two challenges are best met with different control strategies. Feedback can produce extremely accurate responses but the delays in the feedback loop limit response times. Alternatively, preprogrammed control can generate rapid responses, but these responses suffer in accuracy. Recent experimental evidence indicates that the brain solves this problem by using both strategies, either simultaneously or sequentially. This multiple independent controller approach is made possible by feedback and adaption. These investigators are constructing a systems-analytic model using the three basic control strategies, multi-tasking, feedback and adaption, to understand the extraordinary performance achieved by the oculomotor control systems. The control concepts revealed by this approach may be applicable to artificial systems faced with similar challenges.